Seismic Study of the Lau Backarc Spreading Center and Tonga Island Arc Using Ocean Bottom Seismographs

9314399 Dorman This project will deploy a set of Ocean Bottom Seismometers across the Lau Basin and Tonge Trench, to complement an already-funded land-based array. The goal is to use seismic velocities to interpret the structure of the mantle wedge and subducting slab, and thereby to determine evidence for phase changes in the slab, and sources of arc back-arc magmas.